Minority Student Summer Science Camps

The goals of this Summer Science Camp are to generate and maintain an interest in science and mathematics among African-American and Hispanic students and to encourage them to consider careers in science and mathematics. Sixty rising seventh-, eighth-, and ninth grade minority students from Knoxville, Chattanooga, and other areas of East Tennessee will partricipate in this camp. The program foccuses on both life and physical sciencw, thus exposing them to two major divisions of scientific inquiry. Mathematics, as well as other discipline areas, are integrated into the four-week residential program. The life science component focuses on population studies; the physical science component focuses on the science and mathematics of several aspects of daily living and recreation. Biology, mathematics, geology, chemistry, physics, money management, and nutrition are intgegral facets of the both project areas. Students participate in hands-on research activities interspersed with discussions related to their activities. In addition, students participate in career guidance and counseling activities, learn to write and present a formal report, practice good study skills, are exposed to motivational programs, and interact with role models from a variety of settings. During the four-week camp, activities will also be offered for parents and siblings. Instructors are experienced college and high school staff members, practicing scientists and mathematicians, and high shcool students. Follow-up activities during the academic year will be on a bi-monthly basis.